RIA: Hypercube-Based Systems

The main objective of this research is to solve the problem of mapping application algorithms developed for multilevel architectures, which are more general than the standard-pyramid architecture, onto hypercube-based systems. Hypercube-based systems are commercially available and have widely been used by the scientific community because they are highly flexible, fault-tolerant, and efficient. Researchers have been trying with success, to solve the problem of embedding standard pyramids into hypercubes. However, such embeddings do not guarantee very high performance for all of the multilevel algorithms, because the performance requirements of particular algorithms are not taken into account by the embedding process. This project will evolve through five phases. The first phase will propose algorithms for embedding multilevel structures into hypercubes. The second phase will be involved in the refinement of the embedding algorithms proposed in the first phase, in such a way that the exact computation and communication requirements of the application algorithms should affect the embeddings. The third phase will attempt modifications of the embedding algorithms proposed in the second phase, so that they will be taking into account statistical performance data, in order to become suitable for the mapping of non-deterministic and data-dependent multilevel algorithms. The fourth phase of this project will propose a class of "multicube" systems, which, while providing smaller numbers of communication channels, can yield performance comparable to that of the hypercube. To conclude techniques for mapping multilevel algorithms onto hypercube-based and multicube systems will be developed. Analytical techniques and simulation results will be used to prove the effectiveness and efficiency of the mapping algorithms.